Building Alabama STEM Teachers with MS/MEd Credentials Program

The Alabama State University (ASU) Noyce (Track 1 and Capacity Building) Scholars Program aims to serve the national need of preparing highly-qualified STEM educators, particularly in high-need public school districts. The Selected Noyce scholars will receive a $10,000 annual stipend for two (2) years, tuition assistance, and access to an innovative, fully online teacher preparation program designed for flexibility and accessibility. This Noyce Program will support STEM majors pursuing a master’s degree in education, preparing them for successful, long-term careers as middle and high school, public-school STEM teacher. The program is directly meeting to serve STEM K-12 master’s level teacher shortage in the state of Alabama and particularly the Montgomery Public Schools (MPS) District. The program specifically targets individuals with a robust STEM background who demonstrate a commitment to educational equity and service. Upon completion, the Noyce Scholars will commit to teaching for two (2) years in a public-school setting for each year of support received.

The Noyce Program at ASU (BASE MS/M.Ed. program) will partner with the Montgomery Public Schools District and the Central Alabama Regional Education In-service Center (at ASU campus). Each year, the program will recruit 8 new Noyce Scholars, and support them each for each to full 2 years to attain the M.Ed. credential. By the end of the 5-year term, the program will produce 32 certified STEM teachers. This multifaceted BASE-MS/M.Ed. program will utilize a holistic teacher preparation concept to integrate best practices into the classroom, including reformed problems-based projects, mentoring, field placements, and group one-on-one best practices. The program will host workshops, conferences, seminars, field trips and training events to give new educators a new perspective of STEM subjects from teaching and learning real-life applications, as well as networking and idea-swapping opportunities. The program evaluation includes mixed-method approach (both qualitative and quantitative and also formative and summative evaluations) to provide a level of impartial professional assessment. The program information and outcomes will be disseminated through ASU website. This project supports talented STEM graduates and professionals to become effective K-12 STEM teachers in high-need school districts. It also supports research on the effectiveness and will help alleviate the critical need for highly effective secondary school teachers in biology, forensic science, and mathematics in the State of Alabama.